Mechanobiology of Innate Immune Cell Responses to Engineered Nanoparticles

Biotechnology is transforming medicine through advances in cell therapies, gene delivery, vaccines, and immunomodulatory particles. However, the success of these technologies depends on a fundamental understanding of how immune cells interpret not only biochemical signals but also the physical properties of engineered materials. Antigen-presenting myeloid cells, including macrophages and dendritic cells, regulate inflammation, tissue regeneration, immune tolerance, and vaccine responses, yet the mechanobiological principles governing their interactions with the mechanical environment remain poorly understood. This project will establish the fundamental science needed to enable the rational design of next-generation biotechnology platforms by determining how mechanical cues regulate immune cell function. The resulting knowledge will provide design principles for engineered nanoparticles and drug delivery systems used in regenerative medicine, cancer immunotherapy, autoimmune disease, and advanced therapeutics. The project will also educate undergraduate and graduate students through interdisciplinary research experiences at the interface of biotechnology, nanomaterials, and mechanobiology, strengthening the nation's biotechnology workforce. By advancing fundamental knowledge at the intersection of biotechnology and mechanobiology, this project directly supports NSF priorities in biotechnology while promoting scientific discovery, national health, and economic competitiveness.

This project will establish a mechanobiological framework describing how nanoparticle mechanics and extracellular mechanical cues regulate antigen-presenting cell function. The central hypothesis is that inflammatory polarization is governed by an energetic landscape defined by receptor-mediated recognition, nanoparticle mechanics, membrane deformation, and cytoskeletal tension rather than by nanoparticle uptake alone. To test this hypothesis, the investigators will develop a library of lipid-coated poly(ethylene glycol) nanoparticles with independently tunable size, stiffness, and phosphatidylserine density that mimic key biophysical features of apoptotic cells. Three objectives will be pursued: (1) identify the mechanical transition regimes governing macrophage and dendritic cell uptake; (2) determine how phosphatidylserine-mediated mechanosensing pathways integrate with nanoparticle stiffness to regulate inflammatory and tolerogenic phenotypes; and (3) define how extracellular matrix stiffness, cortical actin mechanics, membrane curvature, and cytoskeletal remodeling control nanoparticle internalization. Quantitative characterization will integrate measurements of nanoparticle mechanics, cellular uptake, mechanotransduction, and inflammatory signaling to establish predictive relationships between material properties and immune cell behavior. The expected outcome is a predictive mechanobiological framework that defines the physical rules governing immune cell interactions with engineered materials. These fundamental advances will expand the scientific foundations of mechanobiology while providing broadly applicable design principles for biotechnology, immunoengineering, and nanomedicine.